Biotechnology Initiative for Systemic Change in the Teaching of Science (BISCITS)

9454397 Zielinski BISCITS or Biotechnology Initiative for Systemic Change in the Teaching of Science is a program that will change the way our young people view modern technology in science. The first and foremost way to do this is enhance our nation's teachers ability to effect such change. In order to succeed, BISCITS will start by retraining the workforce at both the middle and high school level by recruiting teacher teams from school districts in the Pennsylvania area. This retraining has many facets. First, teachers need to become current and fluent about molecular biology and biotechnology subject matter and the types of employment open to those students wishing to pursue these areas as careers. Also, BISCITS will provide sessions discussing ethical issues that are being raised by biotechnology. BISCITS will make the teacher participants "biotechnology-literate."